Conference: International Meeting on Proteins that Bind RNA to be held in Austin, TX

The Second International Conference on Proteins that Bind RNA will be held at the Lakeway
Inn Conference Center in Austin, Texas, from March 4-8, 2001. The First International
Conference on Proteins that Bind RNA was held in May 1998 in Avalon, New Jersey. This
series of international meetings brings together molecular biologists and structural
biologists who share a common interest in RNA-binding proteins. The meetings focus on the
biological role of RNA-binding proteins and how structural analysis provides insights into
the function of RNA-protein complexes. The format is designed to maximize the exchange of
information, foster collaborations, and to set the stage for future directions in
research. Speakers include an interdisciplinary mix of established scientists and young
investigators in the areas of molecular biology, genetics and structural biology of
RNA-binding proteins. The format includes a mix of distinguished invited speakers and
talks chosen from submitted abstracts. Extensive poster sessions provide breadth to the
meeting and encourage cross-talk among investigators and students. Meeting topics include
the role of RNA-binding proteins in the following processes: post-transcriptional RNA
processing (such as splicing, editing, nuclear transport and mRNA decay), transcriptional
termination, the function of ribozymes in-vivo, enzymatic RNP molecules, translation,
developmental control, viral replication and human disease.